King's College Robert Noyce Teacher Scholarship Program

The Noyce Track 1 Teacher Scholarship project aims to serve the national need of preparing, empowering, and retaining Science, Technology, Engineering, and Math (STEM) teachers to address the national shortage. Additionally, this project will support the preparation of a minimum of 20 highly-qualified STEM teachers by providing scholarships, textbooks, fees, and possible room and board, along with a professional learning community and mentoring experiences. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in the Universal Design for Learning (UDL) framework.

This project at King’s College includes partnerships with the Hazleton Area School District, a high-need school district, the Hazleton Area Academy of Sciences, the Luzerne County Community College, a 2-year institution, and the Luzerne Intermediate Unit 18. Project goals include the preparation and certification of 20 undergraduate STEM teacher candidates over 5 years in the fields of mathematics, biology, chemistry, physics, and general science secondary education. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) How has a pathway been established for all STEM learners to access Noyce resources to complete STEM secondary education certification requirements at King’s College? (b) How has teacher candidates’ self-efficacy in the areas of STEM education and Universal Design for Learning (UDL) pedagogies increased? (c) How has a peer-led professional learning community been established to embed natural mentorships within the Northeastern Pennsylvania STEM community? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.